Addition of Equipment to the Electron Microscopy Laboratory of Western Carolina University

Western Carolina University is seeking to improve its existing Electron Microscope Facility through the purchase of specimen preparation equipment including a micro tome, diamond knife, and resin oven as well as a critical-point dryer, sputter coater, and energy dispersive x-ray detection system. The equipment will be used primarily in undergraduate education and research in the Department of Biology, although other disciplines will also be affected. A new course, "Techniques in Electron Microscopy" has been implemented in order to instruct students in the theory and use of the requested equipment.